ROW: Analysis of Alluvial Architecture and Paleosols Using Remote Sensing

ROW: ANALYSIS OF ALLUVIA ARCHITECTURE AND PALEOSOLS USING REMOTE SENSING The developmental history of sedimentary basins is best reconstructed using a multidisciplinary research program that includes not only more traditional studies such as structural geology and sedimentology, but also techniques that are still experimental, such as remote sensing. Remote sensing can enhance basin analysis by providing large quantities of data more efficiently and more easily than can be accomplished through field research alone. In addition, the regional perspective shown in satellite images can stimulate new questions and insights into a geologic problem and reveal features that are not readily visible on the ground. This research is an expansion of ongoing field research of alluvial deposits in the Bighorn Basin, Wyoming from a local to a regional scale by using spectral data from satellite images and digital image processing techniques. The major objective is to improve understanding of the sedimentologic and tectonic processes which produced the alluvial architecture of the lower Eocene Willwood Formation. The second goal is to test and refine concepts of large-scale paleosol cycles determined during the past several years of research on the Willwood Formation. This project is designed to broaden the Principal Investigator's scientific expertise and research capabilities by providing experience with modern remote sensing techniques and data processing. It offers a rare opportunity to explore innovative techniques that can be used not only in studying the developmental history of the Bighorn Basin but also in future research projects.